The Microbe Project: A BIOAC Workshop being held in Woods Hole, MA on August 10-11, 2000.

The purpose of the BIO AC workshop will be to provide advice that will help crystallize NSF's role in The Microbe Project. The workshop will summarize the accomplishments, challenges, and opportunities in the microbial genomics field that are relevant to the NSF, provide some direct advice (such as criteria for selection of microbes that should be sequenced with NSF support), and also identify issues that should be addressed in greater detail in future workshops or other venues (e.g. informatics, standards for annotation, infrastructure needs, etc).

The workshop will be held at the J. Erik Jonsson Center of the National Academy of Sciences in Woods Hole, MA from August 10 (all day) until noon on August 11, 2000.